The Status of Research on Learning Science within Informal Education Settings -- A Planning Grant

The Center for Education's Board on Science Education (BOSE) of the National Academies will plan and host a one-day planning meeting to examine the status of research on learning science within informal education settings. This planning meeting will help leaders in the field of informal learning think about the current state of research and evaluation and help them conceptualize a synthesis study on research in informal learning settings.